CAREER: The Design of Resource-Efficient Communications Systems by Combining Decision Feedback with Error-Control Coding

The ubiquity of communications technology is becoming more evident
every day. As the number of customers grows within each market, along
with their demand for higher and higher data rates, the need to use
available resources such as power and bandwidth as efficiently as possible
becomes paramount. Typically a communications system that is operating near
theoretical limits requires a receiver whose computational complexity
is prohibitively large. To reduce complexity, it is common to linearize
a portion of the receiver but this can severely reduce system performance
relative to theoretical potential. However, there is a class of nonlinear
receivers known as decision-feedback receivers whose complexity is essentially
no more than that of linear receivers but whose performance is often much
closer to that of optimal receivers. This research explores the
decision-feedback receiver structure as a practical means of realizing
resource-efficient communications systems. The research is also integrated
into educational activities at all student levels. Aspects of the research
are purposefully introduced to undergraduate students in the classroom,
during summer work programs, and through senior-level thesis advising.
This prepares them both technically and motivationally to enter industry
or to pursue further studies in graduate school. Graduate students are
provided an environment conducive to doing quality research in the exciting
field of communications, whether they choose careers in industry or academia.

The technical aspects of the research involve three components. First, it
is determined, at least in principle, how to combine a decision-feedback
receiver with error-control coding for a variety of important communications
channels. Then, within these decision-feedback frameworks analytical
relationships between available resources and system requirements are derived,
and resource-efficient systems are designed. Lastly, the transition is made
from theoretical random codes to actual encoders and decoders that are
simulated in software. Together these investigations provide communications
systems that are highly efficient in regard to their conservation of
resources, yet with low enough complexity to be amenable to implementation.